Solar Flare and Solar-Interplanetary Phenomena Investigated with High Energy Charged Particles

This project will examine the following two topics: 1) The understanding of solar-terrestrial relationships and the solar-interplanetary electrodynamical phenomena which control the propagation of energetic charged particles in the heliosphere over a 22-year solar magnetic cycle, and, 2) The physics of solar flare charged particle acceleration propagation and the associated neutron emission from solar flares. The experimental approach to the first topic is based on using charged particles as probes of the heliospheric magnetic fields. For the second topic, the PI will investigate solar flare particles acceleration through spacecraft measurements of the charge particles spectra, elemental and isotopic composition as a function of time for nuclear species from hydrogen to nickel. Studies also are made of solar flare neutron emission using a high altitude, equatorial super monitor. Both scientific objectives require the continuing support of neutron monitors (for nuclei of relativistic energies) and a network of instruments on spacecraft located throughout the heliosphere. This proposal includes support for the standard neutron monitors at Climax, Colorado, and Mt. Haleakala as well as the 18-counter super monitor on Mt. Haleakala. The data from this network are available to the scientific community. The remainder of the proposal supports analytical and theoretical research directed to the research areas described above.